Hyperbolic Manifolds: Geometry, Topology, Group Theory and Arithmetic

Motivated by considerations in topology, geometry, arithmetic and
group theory the proposal intends to study real, complex and
quaternionic hyperbolic manifolds. This will involve the study of
discrete groups, and their connections with other research active areas; for
example number theory, and the theory of expanding
graphs. We will also explore various interconnections between these
geometric objects. This has been fruitful in the past,
since previous work has shown how an understanding of higher dimensional
hyperbolic manifolds can impact the topology of 3-dimensional manifolds.

The proposal seeks to further understand basic objects in modern
geometry and topology, namely manifolds that admit a hyperbolic metric
of some type. Many of the problems in the proposal are
cross-disciplinary, and are amenable to study using a broad spectrum
of mathematical technqiues; for example from number theory, geometry,
topology and group theory.
By their nature, progress and solutions to problems in the proposal
will have a broader impact. The problems suggested have applications
in fields as diverse as number theory (class numbers) and cosmology
(and its relation to the topology of 4-dimensional hyperbolic
manifolds) and computer science (expanding graphs). All of these have
the potential to be fertile grounds for the education of graduate
students.